Integration of Tissue Culture Techniques into the Under- graduate Biology Curriculum.

With equipment procured through this project, modern techniques of tissue culture are being incorporated into the Biology curriculum. In the sophomore course required of majors and in the five upper division courses, these techniques are being used, e.g., to carry out experiments in viral infection, plant and animal organ/tissue explantation, the formation of hybridomas, and plant and animal morphogenesis. The plant growth cabinet and the growth chambers provide environments for controlled experiments and for the propagation of living material used in the various labs. Controlled environmental conditions are essential for many of the experiments. A contamination-free environment also is required to protect both the aseptic culture material and the students. A sterile and safe environment is being provided by the laminar flow hood. Finally, undergraduates now have modern phase contrast, inverted and fluorescence microscopes for use in their studies in Cell Biology and tissue culture.